Beyond Scalar Models: Variational methods, Stability and Dynamics for Infinite Dimensional Dynamical Systems

Waves that travel without changing shape — called solitary waves or solitons — appear throughout nature and technology, from ocean swells and fiber-optic signals to plasma physics. Understanding when such waves persist, break apart, or interact is fundamental to predicting the behavior of systems that rely on them, with direct relevance to fiber-optic communications, semiconductor devices, and water-wave engineering. This project will develop new mathematical tools for analyzing the existence and stability of these wave structures in settings with multiple interacting components, a substantially more difficult challenge than the single-wave case that has dominated prior research. This work serves the national interest by advancing the mathematical foundations underlying modern communications technology, materials science, and plasma research, while training students for interdisciplinary careers. The project will support research and professional development of graduate and undergraduate students at the University of Alabama at Birmingham, continuing a track record of preparing students for careers in academia, industry, and government.

This project addresses the existence and spectral/orbital stability of coherent wave structures for systems of nonlinear partial differential equations, extending variational and spectral techniques well developed for single-equation models to the more challenging case of coupled systems. The investigator will construct wave solutions for models arising in nonlinear optics, laser-plasma interactions, quantum plasma dynamics, and semiconductor theory. A related direction concerns long-time asymptotic behavior near such structures in damped and dissipative systems. The mathematics developed is relevant to advanced materials and photonics applications, including semiconductor modeling and superconductivity, and touches on quantum plasma phenomena.